A National Network for the Education of Rehabilitation Engineering Technologists/Technicians

(58) The T.K. Martin Center for Technology and Disability at Mississippi State University, in collaboration with Queensborough Community College and Mississippi Gulf Coast Community College, is conducting a project to increase the number of personnel who will be qualified to provide rehabilitation engineering technology (RET) services in public and private agencies and institutions involved in the vocational rehabilitation and independent living rehabilitation of individuals with disabilities. The project is clearly defining the responsibilities of RET and the needed competencies; defining and developing the educational requirements of the RET curriculum; establishing the need for RETs; developing the logistics required to offer the program; equipping teaching labs with appropriate assistive technology; and establishing an advisory board. An effort is also being made to expand the consortium of participating institutions from two to four.